The Development of a Wide Field Imager for the APO 3.5 MeterTelescope

9512594 Stubbs Silicon technology has revolutionized astronomy by giving us near perfect CCD light detectors that have very high quantum efficiency and linearity compared to the old standard: photographic plates. However, individual CCD detectors are very small compared to photographic plates and cover only a small amount of sky so that most of the light gathered by the telescope mirror is wasted. This program will develop a powerful wide-field CCD camera system for the Apache Point Observatory (APO) 3.5 meter telescope that will be as large as any yet built (67 million pixels), and will have state-of- the-art read-outs and data processing capability. This versatile instrument will make possible a wide range of astrophysical observing programs, particularly those that attack pressing open questions in observational cosmology such as: How fast is the universe expanding?; Will this expansion continue forever?; what is the nature and distribution of the dark matter that is the gravitationally dominant component of the universe?; and What is the role of particle physics in the birth and evolution of the universe? ***